I-Corps: Translation potential of a modular control architecture to improve a robot’s accuracy

This I-Corps project is based on the development of a control framework that enables precision metrology systems to be integrated into robotic platforms providing them with real-time traceable accuracy. Off the shelf robotic systems struggle to meet accuracy requirements in many direct manufacturing tasks such as machining and drilling, and freeform welding, including wire arc additive manufacturing. Existing methods that use calibration and traditional sensor integrations such as vision systems can be slow, and lose accuracy over time or due to changing environmental conditions. The ability to achieve high accuracy in robotic systems has the potential to enable new flexible manufacturing capabilities with robotics, which may improve machining and manufacture of large parts and castings, or large integrated systems, including in vehicle, ship, and aircraft repair processes.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a kinematic error observer feedback control architecture to robotic platforms. This technology architecture is inherently non-invasive and can be deployed in parallel with the robot’s existing control system. It uses a disturbance-observer framework that enables real-time integration of external metrology systems in a plug-and-play architecture that is suitable for integration in robotic systems where controllers and real-time feedback loops are typically inaccessible. Results show that robotic systems integrated with this technology can achieve below 100-micron accuracy across the entire working envelope of the robot. In addition, the technology may provide traceable, high-accuracy performance of robotic systems for manufacturers and robot integrators.